Analytic Number Theory on Groups

This award supports the research of Dorian Goldfeld in the
study of discrete groups with applications to analytic number
theory. The proposed research concerns various open problems
related to: the distribution of additive characters on
Fuchsian groups, the ABC-conjecture, higher rank Eisenstein
series twisted by Ash-Borel modular symbols, the Waldspurger
correspondence for cubic covers of GL(2), and the geometric
periods associated to derivatives of L-series.

Number theory has its historical roots in the study of whole
numbers, and is among the oldest branches of mathematics.
Diophantus, of the third century, proposed many problems in
his arithmetic, requiring the solutions to be whole numbers.
The study of integer solutions to equations is now referred
to as Diophantine analysis, and has many applications to
computational complexity, data transmission, signal
processing, cryptography, etc. Professor Goldfeld introduces
and studies new types of geometrical L-series (infinite sums
of geometric objects depending on a complex parameter) in
order to develop a novel general method to attack a large
class of hitherto still unsolved Diophantine problems.